CAREER: Distributed Space Systems Control via Graph-Driven Hybrid Systems and Matrix Inequalities

A distributed space system is a collection of
physically separated, multiple space vehicles whose
states are coordinated to achieve a local or global objective.
The distributed spacecraft paradigm shifts the complexity of
the space system design, traditionally associated with the
control of large flexible structures,to problems in planning,
coordination, inter-spacecraft communication and sensing, and control.
The objectives of this project are to
(1) develop a hybrid control design methodology which captures
the interaction between inter-spacecraft communication and sensing
on the one hand and the admissible distributed spacecraft
control strategies on the other, and
(2) develop autonomous maneuver planning and
control for distributed space systems.
This research leads to novel analysis
and synthesis techniques for a class of
hybrid dynamic systems that is tailored to capture
the interdependence of communication, sensing, and control
of a distributed system.It also examines a paradigm and a new
set of techniques in the matrix inequality approach to path
planning and control.

The education plan is implemented through
course and curriculum development,
undergraduate and graduate mentoring, and an outreach effort.
The undergraduate course focuses on control theory and its applications in
the design of space systems,and emphasizes its interdependence on
communication and computing technologies.
Two graduate courses, Hybrid Systems and Optimization in Systems Sciences,
emphasize the recent advances in the modeling,
analysis, and design techniques for a specific class of
dynamic systems, and lays out a rigorous framework,
based on optimization theory and computational techniques,
for general dynamic system analysis and synthesis.
The outreach effort focuses on an interactive Internet website and
two teachers' workshops, through which concepts of control and
space system engineering are communicated to the high school students and
grades 9--12 teachers.